CAREER: Develop Robust Scalable Linear System Solvers with Scientific, Engineering and Industrial Applications

This is a high performance scientific computing project. It will develop a class of robust scalable preconditioning techniques for solving large sparse linera systems, using multilevel recursive incomplete LU factorization techniques preconditioning techniques to achieve robustness. This research will benefit sectors of American industry using large scale numerical simulations, such as aerospace engineering and nuclear reactor simulation.